Support for Thirteenth North American Meeting, Catalysis Society, to be held May 2-7, 1993 in Pittsburgh, PA

Partial support is provided for the 13th North American Meeting of the Catalysis Society to be held in Pittsburgh, PA on May 2- 7, 1993. The funds will be used to support attendance of students at the meeting and to defray general meeting expenses.